Experimental Studies on Primate Locomotion

The primary objective of this project is the continuation of research on the morphology and comparative anatomy of primate locomotion. The investigators have a long history of investigating muscular activity in locomotion and attempting to then interpret the fossil record in light of their findings.